Geometric Microlocal Analysis: A Conference in Honor of Richard B. Melrose

DMS-0102791
Victor Guillemin, Andras Vasy

This award provides partial support for participants to attend
the meeting `Geometric Microlocal Analysis: a conference in honor
of Richard Melrose' to be held at the Massachusetts Institute of
Technology, March 29-31, 2002.

The speakers at the conference will be distinguished mathematicians
working in Melrose's wide-ranging fields of interest.
The primary need for the conference is the otherwise unavailable
opportunity to gather together specialists from many different areas who
would normally have little contact, but who all have ties to
Professor Melrose. In particular, inviting experts with connections
to Melrose's fields of interest, but whose work often has a different
emphasis and uses different methods, provides an unprecedented opportunity
for the synthesis of these ideas.
The tentative list of the main speakers, who will deliver one-hour lectures,
consist of Michael Atiyah, Nicolas Burq, Charlie Epstein,
Charles Fefferman, Lars Hormander, Victor Ivrii, Gilles Lebeau, John Lott,
Peter Sarnak, Johannes Sjostrand, Terence Tao, Daniel Tataru,
Michael Taylor, Gunther Uhlmann, Steve Zelditch. The schedule is not
expected to be crowded so that there will be plenty of time for discussions
between all the participants.

Further information will be soon available at http://www-math.mit.edu/seminars.